International Travel Grants for Participation in 16th World Congress of International Political Science Association

9320652 Hauck The American Political Science Association will provide travel grants to junior American scholars participating in the Sixteenth World Congress of the International Political Science Association. The World Congress will be held in Berlin, Germany from August 21-25, 1994. The theme of World Congress will be Democratization. ***